NSF Connections

9318761 Mohta This award connects Golden Gate University to NSFNET through the CERFNet mid-level network. Faculty and students at the institution will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicated and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.